Presidential Young Investigator Award: Architectures and Synthesis for Digital Signal Processing

Rabaey Research efforts are focused on the development of the HYPER high level synthesis environment. In order to obtain a complete and more functional environment, extensions and improvements are being developed that provide more accurate cost and performance predictions, transform (recursive) structures into alternate forms which achieve maximally fast performance (amongst others), and incorporate an optimization environment for background memory and input/output interfaces.